Marginal Band Formation and Cellular Morphogenesis in Nucleated Erythrocytes

Nucleated erythrocytes are utilized as a model system for studying biogenesis of the cytoskeleton and its relationship to cellular morphogenesis. The focus is on formation of the marginal band (MB) of microtubules (MTs) and its function in effecting the change of cell shape from spheroidal erythroblast to flattened ellipsoid. A major objective is to analyze MT bundling as a basis for MB formation, using a recently developed in vitro system. Here, MT bundling is followed by real-time video microscopy during reassembly of MT protein obtained simply by low temperature extraction of cytoskeletons or isolated MBs. The analysis includes identification and ultrastructural localization of MT-associated proteins (MAPs) involved in MT-MT crossbridging, and the use of antibodies as potential bundling inhibitors. The second major objective is to test our working hypothesis for stages of MB biogenesis and their functional correlation with cell shape changes. This work exploits anemic Xenopus in which erythroblasts differentiate in the circulation. Erythroid cells which are singly and doubly pointed and which contain pointed, incomplete MBs have been discovered in the circulation of such anemic frogs; these may represent morphogenetic intermediates. Experiments include BrdU nuclear labelling to determine the morphogenetic sequence in vivo and in vitro, testing of predicted MT polarity in pointed cells, and study of ;the causal relationship between MB structure and cell shape. The work is expected to help settle current controversy regarding MT bundle formation and function, and to enhance general understanding of cytoskeletal function in eukaryotic cells. The red blood cells of nonmammalian vertebrates are quite different from those of mammals, in that mammalian red cells lose their nuclei during maturation while nonmammalian red cells retain their nuclei. During frog red cell differentiation, there is a marked shape change from the rounded, spheroid shape of the erythroblast precursor to the flattened ellipsoid shape of the mature erythrocyte. This shape change is associated with the development of a set of circumferential bundles of microtubules in the plane of flattening, known as the marginal band (MB), which presumably functions to maintain the unique shape of these cells. This proposal addresses two questions with respect to the mechanism by which MBs develop and function: 1, what non-microtubular proteins are involved in the bundling process; and 2, what is the role of the MB in cellular morphogenesis? In addition to increasing our understanding of how nonmammalian vertebrate erythrocytes develop, this project may shed new light on general principles of microtubule bundling and microtubule interactions with associated proteins.